SACNAS 1989 High School Science Teaching Workshop

The Society for the Advancement of Chicanos and Native Americans in Science (SACNAS) will hold a third conference in the series of "Teaching culturally relevant science" at San Jose State University. The previous conferences have been in Pasadena (1986) and in El Paso (1987). The aim of the conferences is to provide 150 High School science teachers with workshops on classroom techniques and resource materials aimed at increasing the interest of Hispanics and Native American students in the sciences. There will be eight workshops and each will be presented twice to give the participants the opportunity to participate in two of their choice. The workshops are: 1. Teaching to a diverse student population: Meeting tomorrow's needs. 2. Development of an observational science. 3. Science and art: The science and creativity in the Diego Rivera murals. 4. Botany and Meso-American design. 5. Feeding the world: Productivity of food plants. 6. Mayan mathematics in the classroom. 7. Healing herbs: The bridge between biology and chemistry 8. Early high technology in Silicon Valley. An amount equivalent to 59.7% of the NSF award is being contributed by SACNAS as cost sharing. The NSF cost per participant for the project is $51.30.